Pan-American Advanced Studies Institutes - PASI: On Inverse Problems

0121911
Uhlmann

This Pan-American Advanced Studies Institutes (PASI) award, jointly supported by the NSF and the Department of Energy (DOE), aims to bring many of the developments of the last 20 years or so in the mathematical theory of inverse problems to advanced graduate students, postdocs, and other scientists in the Americas interested in the topic and its applications. The PASI, organized by Dr. Gunther Uhlmann of the University of Washington, will be held at the Mathematical Sciences Research Institute in Berkeley, California from October 29 to November 2, 2001. This PASI will be followed by a MSRI-organized workshop on Inverse Problems and Applications at the same site, thus allowing some of the participants and lecturers to attend both events. The emphasis of the PASI will be on open problems in the field but also on promoting international collaborations by bringing experts in different areas together in one event. Approximately 25 participants will be expected, from various countries in the Americas.